Preparation and Accelerator Mass Spectrometer (AMS) 14C Dating of Terrestrial Materials for the Earth System History Program

This award provides funds to analyze four hundred terrestrial samples by the carbon-14 technique to establish their age.